Mathematical Sciences: Matrix and Combinatorial Theory

This research is concerned with a variety of problems in linear algebra. One of the principal investigators will study the dependency of zero patterns and signs on matrix invariants; error-correcting codes defined by a greedy algorithm; integer lattices generated by combinatorially defined classes of matrices; computational procedures for certain classes of permanents; and the relation of posets to matrices. The other principal investigator will work on non-negative matrices; the related class of M-matrices and their generalizations; scaling of matrices; and inertia theory of matrices. A matrix is a rectangular array with possible entries from a wide variety of rings. This is a field which originated in the nineteenth century as a part of algebra. It is currently very active in view of its many applications and connections with other parts of mathematics and other scientific and technical disciplines.